Mathematical Sciences: 1990 Summer Research Institute on "Differential Geometry"

This project will support the 1990 Summer Institute on Differential Geometry which will be held during July 1990 at the University of California, Los Angeles. The three-week institute is the thirty-eighth in a series which brings together groups of mathematicians interested in a particular field of mathematical research. The program will address both new developments in the more classical areas of differential geometry and new connections with partial differential equations and mathematical physics. The major topics to be addressed at the institute include (1) Riemannian geometry, (2) minimal submanifolds and constant mean curvature, (3) complex geometry, (4) the general theory of partial differential equations on manifolds, harmonic functions, harmonic mappings, the Monge-Ampere equation, differential systems and isometric embedding, (5) eigenvalues, heat flow, and index theory, (6) gauge theory and geometry in mathematical physics, (7) groups and manifolds and dynamical systems, and (8) symplectic geometry.